Discrete and continuous geometry in group theory

Artin groups are a large class of groups commonly studied by geometric
group theorists. They are related to Coxeter groups, they include and
generalize the braid groups, and they have a natural definition
involving complexified hyperplane complements. Despite these
affiliations with well-known objects, very few Artin groups are
currently understood, even at a basic level, and those that are belong
to highly restrictive families defined primarily by the situations
where existing techniques can be applied. The approach described here
is fundamentally new and different. The goal of this proposal is to
understand the natural, continuous geometric objects (recently
introduced by the principal investigator and his collaborators) that
have the potential to serve as a geometric foundation for the study of
all Artin groups in a uniform fashion. These geometric objects,
called factor geometries, are of interest in their own right. There
is, for example, a natural continuous group G that has the orthogonal
group as a quotient, contains the braid group as a subgroup, and is
the fundamental group of a finite-dimensional metric simplicial
complex whose universal cover is the contractible factor geometry with
a building-like structure on which G acts. This unusual uncountable
group and space, defined via the collection of minimal factorizations
of spherical isometries into reflections, is a hybrid mix of Lie
groups and metric simplicial complexes, and every Artin group acts on
a similarly defined continuous geometric object. The eventual
structure theory should resemble that of Lie groups and early
indications are that these types of complexes carry geometric and
combinatorial structures sufficient to resolve many longstanding
conjectures about arbitrary Artin groups.

Mathematical objects, like many physical objects, can be better
understood when we fully understand the symmetries they possess. The
algebraic structure that records how these symmetries interact is
called a ``group'' and the groups under consideration here are a class
of groups generated by ``reflections'' (a symmetry like the reflected
image one sees through a mirror). The main goal of this project is to
deepen our understanding of the relationship between symmetry groups
built from reflections (specifically Coxeter groups) and a second
class of symmetry groups, called Artin groups. The most famous
example of an Artin group is the braid group, the group that keeps
track of the distinct ways in which several strands of string can be
braided together. Constructions involving Coxeter groups, Artin
groups and braid groups proliferate throughout mathematics, including
some recent mathematical physics. In many of these cases, the
immediate connections are, strictly speaking, to Artin groups rather
than Coxeter groups, but these connections have not been pursued
partly because the theory of Artin groups is underdeveloped. Once
this situation is rectified within geometric group theory, the next
step will be to export the resulting structure theory to these
neighboring domains